Parameterization of Convective Momentum Transport Using Cloud Resolving and Single Column Models

The vertical transport of momentum by cumulus convection is very important in maintaining the large-scale atmospheric circulation, but the process is not adequately represented in general circulation models of the atmosphere. The development of parameterizations of convective momentum transport is extremely important to the advancement of climate and numerical weather prediction in general.
Dr. Zhang will investigate fundamental issues related to convective momentum transport and the development of a convective momentum parameterization scheme. Specifically he will examine the role of the convection-induced pressure gradient force across clouds in vertical momentum transport. He will employ two- and three-dimensional cloud resolving models and a single column model as well as observations from both a tropical maritime environment and a midlatitude continental environment. The cloud resolving model results will be used to understand the role of the pressure gradient forces and then refine the parameterization. Several parameterizations will then be tested through simulations with a single column model. Ultimately the results should improve our understanding of the effect of convective momentum transport on the large-scale circulation of the atmosphere.